Collaborative Research: Experimental constraints on the rates and mechanisms of iodine redox transformations in seawater

The goal of this study is to constrain the chemical and biological reactions controlling the iodine cycle in the marine environment. Seawater iodine plays a key role in the cycling of carbon, dissolved oxygen, and ozone, and has been hypothesized to also influence the elemental cycles of manganese and nitrogen. The composition of iodine in sedimentary rocks has also been proposed as an archive of ancient seawater oxygen availability. Unfortunately, few constraints currently exist on iodine reaction rates and mechanisms in seawater, limiting quantitative applications. To remedy this, scientists from Michigan State University (MSU) and Woods Hole Institute of Oceanography (WHOI) will use a rare iodine isotope, iodine-129, as a tracer of iodine chemical reactions in controlled seawater incubations designed to determine specific reaction rates and mechanisms from two end-member environments: well-oxygenated mid-Atlantic seawater as part of the United Kingdom-based Atlantic Meridional Transect (AMT) annual time series and low oxygen zones in the Pacific Ocean. The project will contribute to building the future United States STEM (Science Technology, Engineering and Mathematics)-trained workforce via the training of one graduate student and at least one undergraduate student from the campus of MSU. This includes hands-on field training and experience through two research cruises, extensive analytical training at WHOI, as well as experience in Earth system modeling simulations of iodine-oxygen interactions at the modern and ancient sea surface. The experimental constraints are designed to inform broader modeling of iodine-related chemical cycles for scientific communities including atmospheric and marine chemists, environmental regulators, and geologists.

The redox potential of iodate-iodide is uniquely poised for probable applications as both a redox tracer of Oxygen Minimum Zone (OMZ)-like conditions in modern and past oceans as well as a critical component of air-sea exchange reactions regulating tropospheric ozone levels. However, a currently limited understanding of the first-order rates and mechanisms of iodine redox transformations in seawater limits applications, which our research seeks to address. Specifically: (1) Marine iodate production, the oxidized and most abundant species, has yet to be observed experimentally despite the fact that most marine inputs from estuarine and other sources consist of the reduced species, iodide. Mass balance demands that in situ marine oxidation is widespread. The oxidant is unknown, but it is unlikely oxygen (O2) due to thermodynamic barriers. (2) Unconstrained in situ processes drive significant accumulation of reduced iodide in photic waters globally, particularly at low latitudes, which ultimately act as a major tropospheric ozone sink. (3) Constraints on rates and reaction mechanisms in OMZs are limited despite iodine being amongst the first redox-sensitive species to reduce under declining O2. We will employ an isotope tracer—iodine-129 as both iodide and iodate—in shipboard seawater incubation experiments to determine the rates and mechanisms of iodine redox transformations governing these widespread trends. This method will be deployed across the largest known gradients in marine iodine speciation—the Eastern Tropical North Pacific oxygen minimum zone and a latitudinal transect of photic and sub-photic waters as part of the Atlantic Meridional Transect. Incubation experiments from these cruises will be used to place first order constraints on the rates of iodine redox transformations at high- and low-[O2], the loci of most intense iodine redox cycling (both vertically and spatially), as well as the mechanisms driving redox transformations. Controls will test oxidants, biotic versus abiotic processes, as well as interactions and comparisons with similar redox cycles such as manganese and nitrogen.